Conference: Support of the 35th International Symposium on Electron, Ion and Photon Beams, Seattle, Washington, May 28-31, 1991

This proposal is for support of student travel to the 35th International Symposium on Electron, Ion and Photon Beams, in Seattle, Washington, May 28-31, 1991. The symposium will cover the latest research results in the fields of nanofabrication, microfabrication, electron and ion lithographies, x- ray lithography, particle beam optics, and forefront applications of nanofabrication. At this conference the latest research from groups around the world are usually reported first. The proceedings of the conference will be published in the Journal of Vacuum Science and Technology.